Reliability Based Bridge Inspection

Bridge management is concerned with the improvement of existing bridges through systematic inspection and maintenance. Inspection of bridges in the United States is normally performed at two-year intervals, subject to change if requested by state agencies. A bridge deterioration model obtained through statistical analysis of bridge inspection data as well as reliability evaluation of the bridge can be used as a basis for the selection of a more objective inspection interval. The statistical analysis will be applied to bridges in states with more diverse environmental and climatic conditions for a more complete evaluation of the current inspection practice. A methodology is presented for quantifying inspection intervals using reliability analysis and determining existing and future reliabilities of a bridge. The conceptual inspection strategy schedules bridge inspection based on the prediction of the bridge condition. A simple bridge case study is presented to show the effectiveness of such program. Certain assumptions and approximations that are made for this case study will be studied in detail and a comprehensive reliability based inspection strategy will be developed. The National Bridge Inventory lacks structural properties that are needed in the reliability analysis. Recommendations will be presented for the creation of a bridge database using existing Computer Aided Design and Drafting (CADD) technology.